Alkylation Reactions Involving Electron Transfer

This grant in Organic and Macromolecular Chemistry provides support for work by Dr. Glen A. Russell, Iowa State University, focused on the one-electron reduction or oxidation of neutral radicals in chain and non-chain processes. The work extends to the application of free radical chain processes involving alkylmercury halides with the primary objective of developing selective additive alkylation processes for electron-poor and electron-rich substituted alkenes. It is believed that such alkenes, which yield adduct radicals that can be classified as acceptor or donor species, can be induced to participate in chain reactions by electron transfer between the adduct radicals and added donor acceptor molecules or ions. The added donor or acceptor molecule or ion will be chosen so that electron transfer yields a new radical or radical ion capable of rapidly reacting with the alkylmercury halide to regenerate an alkyl radical. The study also involves physical organic studies on the reactivity of alkyl radicals, particularly towards unsaturated systems, and includes new studies concerning the regiochemistry of radical attack, the stereoselectivity of radical addition and the stereospecificity of radical substitution occurring by an addition-elimination sequence. This data will be applied in a diagnostic fashion to establish or eliminate the presence of radical processes in reactions of other organometallic tert-butylating agents.